Issues in Quantum Gravity

The main portion of this research project addresses fundamental
questions about the nature of space and time. It is part of a broad
effort shared by many researchers who are building the structures we
need to understand more about both the beginning of our universe and what
happens at the center of black holes. Some researchers believe that
these answers will lead to many others, and eventually to a complete
theory of physics that explains the detailed structure of our
universe.
A number of specific technical questions will be investigated, relating
to various approaches. Some of these develop mathematical tools for
the so-called `loop approach' to quantum gravity. Others relate to the
possibility that our universe may have more than the three space and
one time dimensions that we see. For example, this idea is part of the
approach known as `string theory.' Finally, some investigations use
the laws of physics to place constraints on the way that space and time
can curve and warp.